Laboratory Investigation of the Interaction of Filamentary Currents in Space Plasmas

9310159 Pfister Based on astronomical observations and the laws of physics it is a well accepted fact that more than 99% of our universe is in the plasma state, the fourth state of matter. Furthermore, it is believed that most of these plasmas carry electric currents. In- situ measurements of plasmas in the earth's ionosphere, cometary tails, and planetary magnetospheres have confirmed these plasma currents. The recent discoveries of helical and filamentary plasma structures in the galaxy and double-radio sources are indicative of magnetic configurations which result from plasma currents. Also, the great majority of laboratory plasmas (e.g. fusion research experiments such as Tokamaks, Reversed Field Pinches, Spheromaks, etc.) are current-carrying plasma. The frequent occurrence of plasma currents and the fact that the interaction of two current filaments is a basic plasma physics process warrants a thorough investigation of this mechanism, because recent experiments show that the physics of the merging of two plasma current channels is not well understood. However, a new theory has been proposed which challenges and extends the existing magnetohydrodynamic (MHD) description, and therefore deserves an experimental test. This proposal is a request for funds to do laboratory research at Dickinson College to help clarify the physical processes occurring during plasma current merging using a novel diagnostic method in a new plasma chamber. The technique of correlating the probe data of localized magnetic and electric fields with the computer controlled placement of the probe tip within the plasma volume will result in a set of three-dimensional data that should be able to advance our knowledge of current merging and also distinguish between theoretical predicitions of MHD phenomena. We plan to use our experimental vacuum chamber equipped with our nw computer-controlled probe drive diagnostic and data acquisition system to perform a detailed investigation of plasma current channel interaction. The initial experiment will involve the generation of a pulsed current that will interact with the fisex axial current rod and the uniform external magnetic field. We will observe the complex interaction of the current in this field configuration to learn how these simplified structures behave. The next step will be to introduce two or more pulsed current beams without any fixed current. Finally, pulsed current beams will be injected into a pre-existing magnetoplasma environment and we will relate all these plasma current results to both MHD and the Salingaros fiber theory. With our new experimental apparatus, the previously observed complexity of the interaction will be controlled and then diagnosed in greater detail than heretofore possible, a necessary condition for a better understanding of the physics of this universal phenomena. ***